Race, Gender, Religion and Church-Based Political Action

This Minority Research Initiation Planning Grant focuses on a church- based process of electoral mobilization among black women. Although religion is thought to be a force that influences political action, it is only recently that political scientists have attempted to build a theoretical and empirical base to study the subject. As a consequence of this dearth of research there is no tradition of research in this field that can act as a guide for analyzing the electoral mobilization of religious black women. Thus, this research has as its main purpose the development of a convergent picture of how the black church acts as an agent of political socialization, thereby politically mobilizing black women. The research will examine data from five existing data sets. The first three (the National Survey of Black Americans, the Three Generational Family Study, and the National Black Election Study) are national representative samples of the black population. The second two (the 1980 and 1984 National Election Studies) are representative samples of the general population. The latter two data sets will be used to compare the relative impact of religion and church life on the political mobilization of white females. By having both a within- group and racial group comparative research framework the investigators hope to learn more about how and why religion influences the political actions of black women.